Equipment: MRI: Track 1 Acquisition of a Multi-Technique Scanning XPS/AES System for Energy, Biomaterials, and Semiconductor Research, Education, and Outreach

Advanced materials and devices hold tremendous potential to solve critical domestic and global challenges. These include delivering affordable and sustainable energy, promoting bio-technology and establishing a prosperous advanced manufacturing base. High impact research in these areas demands characterization methods that determine both the structure and composition of materials and devices with precise spatial resolution, i.e., with micro/nano-scale microscopy. This award supports a next-generation multi-technique instrument for determining the structure and composition of materials at their surface, and also below the surface using depth-profiling. It allows rapid analysis of multiple samples with full automation, enabling highly efficient use. This will enable multiple researchers to rapidly advance a broad range of forefront research in nanoscale materials and devices cutting across energy, health/biomedicine, and micro/nanoelectronics. It will serve multiple university researchers, teams, and centers in the region. The instrument will be available to users with professional staff in customized space within the new Vagelos Laboratory for Energy Science and Technology building, a state-of-the-art facility, allowing the instrument to operate at peak performance. It will also directly benefit the professional development of graduate students and postdocs pursuing a broad array of research, facilitated by Philadelphia’s easily accessible location. The user base will be further broadened thanks to the powerful automation and remote operation capabilities. It will also be used for education in multiple laboratory courses and under-graduate research programs, and support a workforce development partnership between Penn and the Community College of Philadelphia. This instrument will be a unique capability in greater Philadelphia, boosting the regional research infrastructure to the benefit of academic and industry researchers, and will have impact beyond the region via its remote access.

High impact materials research demands multifunctional characterization methods that deter-mine the structure and composition of materials and devices with powerful spectroscopy, and which do so at high lateral and vertical spatial resolution, i.e., with micro/nano-scale microscopy. This project is acquiring such an instrument, a Physical Electronics (PHI) Genesis system, to serve as a unique regional user facility. Genesis is a next-generation multi-technique instrument for spatially-resolved surface and depth-profiling spectroscopy. Its high throughput and full automation enable near 100% research use. A micro-focused X-ray source (<5 µm spot size) enables X-ray photoelectron spectroscopy (XPS) chemical mapping with high sensitivity and lateral resolution, and a nano-focused electron beam enables Auger electron spectroscopy (AES) chemical mapping at even higher (100 nm) resolution. Extended electronic structure characterization is performed via ultraviolet photoelectron spectroscopy (UPS) and reflection electron energy loss spectroscopy (REELS). Accurate chemical state information is enabled by an advanced charge compensation scheme for insulating, soft, and biological materials. Precise depth-profiling is performed either non-destructively in a high sensitivity angular-dependent mode or via sputtering. Genesis will rap-idly advance a broad range of forefront research in nanoscale materials and devices cutting across energy, health/biomedicine, and micro/nanoelectronics. It will serve multiple research centers in the mid-Atlantic region including the Mid-Atlantic Nanotechnology Hub, a National Nano-technology Coordination Infrastructure site led by Singh Center for Nanotechnology, and the Mid-Atlantic Semiconductor Hub, a regional hub focused on promoting semiconductor research, development, and commercialization. Genesis will be available to users with professional staff in customized space within the new Vagelos Laboratory for Energy Science and Technology building. Genesis will directly benefit the professional development of graduate students and postdocs pursuing a broad array of research, facilitated by Philadelphia’s easily accessible location. The user base will be further broadened thanks to the powerful automation and remote operation capabilities. Genesis will be used in multiple laboratory courses and undergraduate research programs, facilitated by its ease of operation. It will also be used in a workforce development partner-ship between Penn and the Community College of Philadelphia. Genesis will be a unique capability in greater Philadelphia, boosting the regional research infrastructure to the benefit of academic and industry researchers, and will have impact beyond the region via its remote access.